Engineering Research Equipment Grant: Local Area Network Hardware for Research in Distributed Operating Systems, Local Area Network Communications and Computer Architecture

Ethernet local area network (LAN) hardware is being acquired to connect three 68010-based multimicroprocessor microcomputers so that they may be used for research in distributed operating systems (DOS's), local area network communications, and computer architecture. These powerful third generation workstations replace a set of three fully connected, earlier-model, 6809-based workstations which no longer meet research needs. The resulting three-workstation local area network primarily serves as a testbed for distributed operating system research, especially in the area of kernel and system process design. The network also serves to a lesser extent as a testbed to verify simulation results on the traffic patterns within a modularly constructed node of a large communications network, and to concurrently emulate several dataflow architecture submachines in order to determine intersubmachine communication requirements.